Understanding how cognitive maps support learning of abstract networks

Most complex phenomena are embedded in networks of constrained relationships that determine how the elements interact and information flows. Representing these networks accurately is a fundamental aspect of human intelligence and crucial for making adaptive decisions. Yet scientists know surprisingly little about how the human brain represents networks. This project investigates the brain systems and mental processes that allow people to form an internal map of a social network and use that map to make effective decisions. The research team uses multiple methods to study how people learn who is connected to whom, how the brain stores and retrieves that knowledge when making choices, and how the brain updates its internal map when relationships change. This work has the potential to transform the scientific understanding of how humans represent and navigate their networks. The project also enhances the training the both graduate and undergraduate students in STEM and computational methods and makes all research data and tools publicly available.

This project aims to test the hypothesis that people construct cognitive maps of networks that support flexible reasoning and decision-making. The research examines what information these maps represent, how their format varies across different goals, how learning experiences shape their structure, and where they are encoded in the brain. Participants learn experimentally constructed networks and complete behavioral tasks that assess strategies for managing information flow through those networks. Computational modeling characterizes the representations that guide performance, and neuroimaging identifies how these representations are implemented in the medial temporal lobe and related brain systems. By integrating behavioral experiments, computational modeling, and neuroscience methods, the project aims to provide a mechanistic account of how humans learn, represent, and navigate networks.